Collaborative Research: Localization of Deformation During the Transition to Seafloor Spreading, N. Gulf of California

Funds are recommended for continued analysis of a high quality geophysical data set collected by the PIs from the northern Gulf of California. The PIs will undertake a sequence stratigraphic analysis and integrate the results with an ongoing structural study of the region. It will also take advantage of data from industry sources that will provide the important stratigraphic control. The goal is to work out the transition from rifting to seafloor spreading and the history of extension in the Gulf. The study will also lead to an understanding of the kinematics of deformation in nascent axial basins.